Experimental Studies on Flow/Flame and Flame/Flame Interactions

The objective of the research is to experimentally simulate the flame- flow interactions encountered in turbulent combustion with a carefully controlled, rotating laminar flame undergoing various degrees of stretch. Opposed jet and stagnation point flows have been chosen because of their accessibility and two-dimensionality. Temperature, concentration, and velocity will be measured in reacting and unreacting environments, and the structure of secondary flows induced by rotation as well as resonance phenomena previously identified will be explored. Supporting experiments will be performed at the Combustion Research Facility of the Sandia National Laboratory, Livermore. Combustion in devices of practical application invariably involves turbulent flow in geometries not amenable to temporal measurement of the important scaler and velocity fields. Numerical predictions of the system performance require an understanding of the flame quenching and propagation processes that occur within the localized turbulent structures. Successful simulation of this complex phenomena through the proposed simple experiments will substantially contribute to our understanding.